Nuclear Structure Research

9402761 Kolata This grant will support a wide-ranging program of basic research in the areas of nuclear reactions, nuclear structure, and nuclear astrophysics to be conducted in the Nuclear Structure Laboratory of the University of Notre Dame, and at other major nuclear research facilities in the US and elsewhere. The areas of interest include the study of the synthesis of heavy elements in the Big Bang and in explosive hydrogen-burning processes, the production and use of radioactive nuclear beams, and the study of exotic nuclear systems such as superdeformed and hyperdeformed states and the "halo" nuclei that occur near the neutron- (and possibly the proton-) drip line. Multiphonon vibrations in deformed nuclei, and the "giant resonance" phenomenon, will also be investigated. Finally, a new component, recently added to the research programs at the laboratory, is the study of weak interactions and fundamental processes in nuclear systems. The research program at the Notre Dame Nuclear Structure Laboratory has emphasized extensive collaboration with experimental and theoretical physicists at other universities. This mode of operation will continue under the proposed grant, as will our own use of such new or anticipated research tools as Gammashpere, the radioactive nuclear beam facility at Oak Ridge National Laboratory, and the S800 spectrograph at Michigan State University.